Structures, Geomechanics and Building Systems for the 21st Century

This project will review current conditions of the nation's infrastructure. The objective is to determine recent advances in applicable technologies and applications in all pertinent disciplines of Civil Engineering. These results will become the basis for recommendations for current research to meet the needs of the 21st century.